SBIR Phase I: Next Generation Fast Fourier Transform-Based Instrumentation

This Small Business Innovation Research Phase I project offers a solution to the fundamental challenge facing the designers of the physical layer of diagnostic systems and scientific instruments. Many of these instruments currently monitor and analyze signals and systems in the frequency domain, and are used in virtually every technical endeavor. Currently these systems are compute-bound, either in speed or area/power. The Phase I aims to develop an innovative instrumentation technology, called GAUSS, that will achieve a new standard in speed/power performance and, in the process, enable the development of new and powerful test and measurement products.

Using the proposed technology, engineers can rapidly enable system-on-a-chip (SoC) solutions for the test and measurement market. Marketed as a semiconductor IP technology, the GAUSS technology can be used to develop both high-end and embedded SoC solutions. This powerful design paradigm will become available to design engineers responsible for developing the physical layer of future diagnostic and instrument products requiring ever increasing performance, lower cost margins, and time-to-market advantages.